Travel Support for PC 2010 Conference, Suzhou, China, June 2-5, 2010

TECHNICAL AND NON-TECHNICAL ABSTRACT

This award provides partial support for travel of U.S. participants to the 2010 International Symposium on Polymer Chemistry (PC 2010). This meeting will be held in Suzhou, China, June 2 - June 5, 2010. An attendance of 300 is expected including 40 U.S. participants from diverse backgrounds. The technical scope of PC 2010 is intentionally broad to provide a forum that brings together leading and young scientists from academic institutions, governments and industries around the world to discuss the emerging and multi-disciplinary frontiers of polymer science. Five general research areas that encompass the frontiers of polymer chemistry were selected to attract participation from a broad range of disciplines: (1) polymer synthesis, (2) macromolecular architecture and supramolecules, (3) functional polymers for photonics, electronics and optoelectronics, (4) bio-related and medical polymers, (5) structure and characterization of polymers.